Braid Groups and Representation Theory

This project is about representations of braid groups. Viewing a braid
group as the mapping class group of a punctured disk, one obtains
representations by taking the induced action on homology modules of
configuration spaces of the disk. Lawrence has shown that all Specht
module representations can be obtained in this way. This project will use
topological methods to study these representations. Of particular interest
is their behavior at non-generic values of the parameter. There are
applications to invariants of knots and three-manifolds.

A braid is a certain kind of arrangement of pieces of string in
three-dimensional space. One can join some of the ends of the strings of
two braids to form a new braid. A representation is a way to encode this
operation using matrices and matrix multiplication. One application is in
defining knot invariants, which are numbers or polynomials that can be
used to tell different knots apart. The representations studied in this
project include the Specht modules, whose rich structure makes them
extremely important to representation theory in general. Representation
theory is the area of mathematics most useful for studying symmetry
whether in nature or in abstract mathematics.